University of Florida Honors Workshop in Mathematics

This two tiered northern Florida junior/senior high school program matches 10 leader mathematics teachers with 20 minimally prepared mathematics teachers, (on a one-to-two basis) in order to strengthen/broaden the mathematical background and to improve the teaching skills of all the teachers. The workshops, in the summers of l987 and l988, will consist of two intense five-week programs running concurrently and separately, but overlapping in a seminar meeting three times per week for all teachers and four faculty members. During the academic year there will be visits to the teachers' classes and two mini-conferences. The courses (tailored to the mathematical experiences of the teachers) will use the problem solving approach and include computer/information sciences. The underprepared teachers will focus on algebra, geometry, measurement, and probability. Other topics will include logic, linear programming, game theory, calculus (upon request), and teaching strategies. Moreover, the leader teachers will develop mentor skills. The University of Florida is awarding 7 credits for these courses. The teachers will come from Central Crown school districts in northern Florida. There is significant cost sharing from the Florida Department of Education and the University of Florida.